Middle School Science Development Program

This project will improve the science education of students in the Richland County schools, South Carolina by enhancing the science background and teaching strategies of 5th and 6th grade teachers. Thirty teachers will participate in a two year program involving 2 five week summer workshops and intensive activity and follow-up during the ensuing academic years. The summer workshops will emphasize science and mathematics content, teaching techniques and laboratory skills. Participant teachers will develop and implement "hands-on" science units within their classrooms and provide inservice programs for their peers. The administration of the schools has guaranteed support for both materials acquisition and the remuneration of teachers for conducting inservice programs. The participating teachers will have access to students during the summer to field test the units being developed. The Lawrence Livermore National Laboratory will provide materials and consultant service to the project teachers. A unique aspect of this program is the involvement of parents and sharing the goals and objectives of the program with them. This proposal is deserving of funding since it focuses on science and mathematics at the upper elementary level, serves an underrepresented population, provides excellent followup activities to the participating teachers, and involves a commitment of the school districts being served.